Characterizing and Testing the Implications of Dynamic Models in Economics and Finance

9409501 Hansen This project develops and implements econometric methods for assessing dynamic economic models. The research covers four different areas. First, the project works on specification and estimation of continuous time stochastic process models. Such models occur frequently in economics, but there remains many open questions about how to estimate and test them using discrete time data. The project examines alternative econometric methods that could answer the most important of these questions. Second, the project develops methods for estimating linear and loglinear rational expectations models. The models for which these methods will be applicable include both ones for which the allocations are solutions to optimal resource allocation problems as well as other ones for which there are market or tax distortions. The estimation methods studied include semiparametric procedures whereby the exogenous forcing processes are modeled in a flexible way. Along a similar vein, the project reinvestigates the issue of using filtering methods to eliminate low frequency components of the data. The motivation for such methods is that the dynamic stochastic model under investigation abstracts from the low frequency movements in the time series. The aim of the proposed research is to devise estimation methods that are on the one hand, robust to this misspecification, but on the other hand, have nice statistical properties and are computationally tractable. Third, the project continues work developing and adapting risk-sensitive control theory to models of dynamic economies. This control theory permits risk-adjustments to be incorporated into models in simple ways so that linear decision rules are sensitive to the amount of uncertainty in the economy. Hence they capture a precautionary savings motive. In addition to testing such models empirically, the project investigates the ramifications of introducing heterogeneity among consumers in their risk prefere nces. Finally, the project studies a long historical data set on British stock prices and dividends and investigates the link between the British stock market and macroeconomic events.